SBIR Phase II: An Economic Optical Fiber Solution to the Last Mile Problem

This Small Business Innovation Research (SBIR) Phase II project develops a new method to distribute “last mile” fiber optic communication lines. Existing fiber installation methods like trenching require extensive approvals and are labor-intensive, disruptive, and cost-prohibitive, especially in underserved or remote areas. “Last mile” fiber is the most expensive part of any installation with a market valued at over $50 billion. This solution enables a quick, low-cost deployment of optical fiber directly onto pavement without cutting into the surface, effectively turning a barrier into a pathway. This new method will enable ubiquitous fiber optic connectivity and will expand the reach of fiber optic networks through the “last mile”. By lowering fiber deployment costs and improving efficiency, this technology will accelerate the rollout of 5G, enable smart city growth, and deliver broadband access to rural areas. This solution extends the benefits of fast communications to previously inaccessible locations, connecting businesses, homes, hospitals, and schools, providing access to information, knowledge, and opportunity for everyone.

The intellectual merit of this project is to validate a new fiber installation method leveraging existing road networks. Using pavement as the base, low-profile fiber cables are bonded to the surface and protected against traffic and weather by layers of durable coatings. Fiber links can be installed quickly on-demand with an installation machine that requires no digging and minimal disruption. The research objectives of this project are to build and test three prototype machines in the field and to iterate on design. The research includes using the machines to install fiber, test pavement transitions, and compare costs and speed against other installation techniques. The anticipated technical results will expand understanding of machine utility, improve the user interface, verify the suitability, and validate economics.